Planning Meeting for NEES/E-DEFENSE Collaboration in Earthquake Engineering

Proposal Title: Planning Meeting for NEES/E-DEFENSE Collaboration in
Earthquake Engineering
Institution: NEES Consortium, Inc.
Abstract Date: 08/10/2004
Project Summary
The George E. Brown, Jr. Network for Earthquake Engineering Simulation (NEES)
initiated
by the US National Science Foundation (NSF) in late 1999 is intended to transform the
nation.s ability to carry out earthquake engineering research. With over $80 million in
new
cutting-edge tools for experimentation, networking, data curation and communication,
the
best minds in earthquake engineering will be able to challenge and solve the most
difficult
impediments to reducing the nation's vulnerability to earthquakes. To accelerate
attainment
of NEES's goals, and avoid unnecessary duplication of effort, US investigators need to
collaborate and have access to data and facilities internationally.
A major long-term, research initiative has begun in Japan known as .E-Defense.. This
initiative is managed by the National Research Institute for Earth Science and Disaster
Prevention (NIED) on behalf of the Japan Ministry of Education, Culture, Sports,
Science
and Technology (MExT). A key component of this initiative is a new, large (20 by 15 m)
shaking table capable of subjecting full-scale, five-story tall, specimens to
three-dimensional
seismic excitations larger than those experienced in the devastating 1995 Hyogo-ken
Nanbu
earthquake. In addition, a long-term research program using this shaking table and
other
major facilities for experimentation and computer-based simulation is planned. This
program
calls for a strong, but as yet undefined, component of international collaboration.
As such, a Planning Meeting is being convened in Shin-Kobe, Japan, near the
E-Defense
shaking table facility, during April 6-8, 2004 to discuss opportunities for collaboration
between the NEES and E-Defense. A small, but diverse group of representative
researchers
from the US and Japan are meeting, along with representatives from NIED, MExT, NSF,
the
NEES Consortium, Inc. (NCI), to identify research topics of mutual interest that fully take
advantage of the unique capabilities of the E-Defense facilities, mechanisms for
developing
NATIONAL SCIENCE FOUNDATION
Proposal Abstract
Proposal:0431490 PI Name:Buckle, Ian
Printed from eJacket: 08/10/04 Page 1 of 2
research plans and projects, and steps needed to implement NEESgrid and related
services
within E-Defense so that the full potential of collaboration between those involved in the
NEES Collaboratory and E-Defense can be realized. The findings of the meeting are
being
distributed widely to potential sponsors and researchers in Japan and in the US.
Intellectual Merit: The E-Defense program in Japan provides truly phenomenal
opportunities for discovery and innovation not possible within the current NEES
portfolio.
By leveraging US and Japanese resources through focused collaborative effort, it is
possible
to accelerate the pace of discovery and innovation needed to mitigate catastrophic
losses due
to large earthquakes. NEES/E-Defense is expected to provide the overall US
earthquake
engineering community access to rich sets of data.
Broader impacts resulting from proposed activity: Explicit NEES/E-Defense
collaboration will provide heightened opportunities for international cooperation. These
include conduct of collaborative research projects, sharing of unique research
resources,
development of international standards and capabilities for documenting, archiving and
sharing information, and exchange of personnel. Participants in NEES/E-Defense
projects
are expected to include junior researchers, women and members of underrepresented
groups,
as well as senior members, of the earthquake engineering and IT research communities
NATIONAL SCIENCE FOUNDATION
Proposal Abstract
Proposal:0431490 PI Name:Buckle, Ian